Continuum Physics and Systems of Conservation Laws

This award will support the continuation and expansion of
the research and scientific training in applied mathematics at the Center
for Nonlinear Analysis in the Department of Mathematical Sciences, Carnegie
Mellon University. Research will focus on the mathematical description and
prediction of a range of phenomena that occur in material science
applications. The study of mathematical models for novel man-made materials
such as shape memory alloys, ferroelectric, magnetic and magnetostrictive
materials, composites, liquid crystals, and thin films, will play a central
role in the program. Phase transitions, defectiveness and defect
propagation, grain boundaries and their evolution, the prediction of
macroscopic behavior and its interplay with microstructural features,
superconductivity, elasto-plastic systems, hyperbolic conservation laws,
stability, metastability, and other topics will be addressed. The study of
these questions will advance the frontiers of nonlinear analysis and
scientific computation.

The goal of this work is to identify and develop new applications of the
mathematical sciences. The main focus will be on nonlinear behavior of
materials and concomitant issues in analysis and computation. Large scale
computing will play a central role in all of our work. The Center will
promote close collaboration between mathematicians and scientists from other
fields. Main activities will be centered around intense, short workshops on
selected topics at the forefront of interdisciplinary research, a
postdoctoral training program where emphasis will be placed on research
opportunities available at the interface between the mathematical and
physical sciences, and a visitors program. The visitors program and the
workshops will be coordinated around research themes selected on an annual
basis. Some of our resources will be devoted to a secondary research
thrust in mathematical finance.